Multiple Sampling of DSDP/ODP Bore Hole Waters

The Principal Investigator will build a water sampler to be used to sample waters from oceanic bore holes drilled during the Deep Sea Drilling Project and the Ocean Drilling Program. The sampler will consist of 5 sampling units that can be triggered by means of an electronic timing mechanism, thus enabling sampling at 5 different depths during one logging run.